Transportation of Members of the Council, I.A.E.G., From Washington, D.C., to Reston, Va. to Winston-Salem, N.C., October 8, 1985

Land transportation costs are provided for the transport of members of the Council of the International Association of Engineering Geology to visit field geological sites in close proximity. The resulting discussions will be of interest to the Siting and Geotechnical Systems Program.